AIT-CCNAA Cooperative Research: Structure of Semiconductor Surfaces

This is a three.year collaborative Research project between Dr. George Keulks, University of Wisconsin at Milwaukee and Dr. C. S. Fang of Institute of Physics, Academia Sinica, Taiwan, sponsored by the AIT.CCNAA Cooperative Science Program. This proposal was submitted by Dr. David Tong, who was a NSF Program Director for the Condensed Matter Theory Program. Because NSF does not allow previous program officers to negotiate with the Foundation within a year of the person's departure, Dr. George Keulks replaces Dr. Tong as a P. I. for this proposal. This proposal plans to study the formation of metal semiconductor interfaces and subsequent growth of semiconductor substrates. The Institute of Physics Academia Sinica in Taiwan has invested more than 1 million dollars in the acquisition of state.of.the.art ultra.high vacuum spectroscopic instruments, which are essential in making experimental measurements for testing Tong's semiconductor structure model. At present, Taiwan's Institute of Physics is one of the few places where such measurements can be made and only place which makes experimental measurements on the metal, Ga. This study can expand our understanding of surface structure, which is essential in the development of new and advanced materials, many which have been used for making computer chips and other electronics.